Rational Design of Geomembrane Surface Texture for Infrastructure Applications

9800291 Dove "Rational Design of Geomembrane Surface Texture for Infrastructure Applications" Geomembranes are manufactured materials that are ubiquitous in civil infrastructure development and rehabilitation. They are thin sheets of polymer used to construct relatively impervious barriers to fluid flow. Designs that incorporate geomembranes typically involve creation of a composite material composed of alternating layers of geotextiles (polymer fabrics), and soils ranging in size from gravel to clay. To achieve improved interface shear resistance, geomembranes are manufactured with a vast range of roughness and surface texture patterns. The relationship between surface texture and interfacial shear strength is not well understood and there is considerable debate in the professional community regarding what form of surface texturing provides the best performance for specific applications. This research is a GOALI award, with the collaborative university-industry research aimed at developing a method to design optimal geomembrane surface textures for use in civil infrastructure applications. The research will involve experimental surface analysis, interface shear testing using granular soils, and mechanical property testing of a range of prototype and production geomembranes. The experimental results will be used to quantify optimal texture characteristics and methods for specific end-use design. Development of methodologies for design of geomembrane surfaces for specific applications and for specific material combinations without sacrificing mechanical performance is an important contribution to infrastructure construction and rehabilitation. ***